Applied Dynamic Macroeconomics

This project investigates a variety of topics in dynamic macroeconomics. The topics basically fall into two categories: (1) linear time series analyses of rational expectations models and (2) the micro foundations of monetary theory. Anyone who has dealt with aggregate U.S. time series data understands the potential for measurement error to bias the analysis in quantitatively significant ways. This is obviously true in structural linear rational expectations models where the sources of error terms in reduced form representations of the data are critical to the analysis. It is also central to innovation accounting exercises of the type undertaken by Sims, as well as analyses of the Blanchard-Watson type which focus on exactly identified VAR systems. The proposed work on interpreting seasonality, alternative models of measurement error, and least-squares learning in multi-agent settings is motivated by a desire to increase the econometric applicability of dynamic economic models and improve their interpretation, absent a more fundamental solution which would generate better measured data. The two studies on monetary theory, similarly, aim to deepen the understanding of different policy predictions given by alternative monetary models. The particular focus of this research is on the impact of timing conventions and communications technologies. Although each of the several sub-projects deals with different aspects of dynamic macroeconomics and is independent of the others, in combination their results should contribute to strengthening the general underlying theory. At the same time, the findings on seasonality and measurement error will have substantial implications for the way econometricians use seasonally adjusted data and interpret empirical results derived from that data.